Constraining the Architecture of Active Thrust Systems of the Central Nepalese Himalaya

Whipple
0087508
Despite many recent advances in our understanding of the tectonic evolution of the Himalaya, perhaps the quintessential collisional orogen, some important controversies remain. One of these centers on the relationship between the dramatic topographic transition separating the high Himalayan peaks from their foothills and the major deformational structures that underlie it. This controversy is fueled in part by the geographic near-coincidence of the trace of the Main Central Thrust (MCT) system with the topographic front. Although the MCT has long been considered dormant by most Himalayan geologists, a number of observations require continued differential uplift and exhumation of the Higher Himalaya and suggest to some an active role of the MCT: (1) crystalline rocks in the hanging wall of the MCT have been the dominant source of sediment delivered to Bengal fan since at least 17Ma; (2) microseismicity clusters on a linear trend that coincides with both the topographic transition and the mapped trace of the MCT; (3) recent geodetic studies indicate rapid differential uplift of the Higher Himalaya; and (4) late Miocene-Pliocene 40Ar/39Ar cooling ages and Th-Pb monazite ages indicate recent deep exhumation and synkinematic metamorphism in MCT zone, respectively. Three alternative models with fundamentally different tectonic implications have been advanced to explain the topographic transition: (1) erosional retreat following Miocene activity on the MCT; (2) fault-bend fold deformation above a crustal-scale ramp in the Himalayan Sole Thrust; and (3) recent (Pliocene) or active thrusting on the MCT. Determining whether the foothills-Higher Himalaya transition is a transient erosional front, the topographic signature of a subsurface ramp, or the trace of an active fault system is critical if we are to understand how the Himalayan orogenic wedge has evolved over the Miocene-Recent interval. Each model predicts distinctive spatial patterns and timing of uplift and exhumation that can be exploited to evaluate their relative merits. This research project is testing these models through a multi-disciplinary study, combining structural mapping, tectonic geomorphology, and topical 40Ar/39Ar and (U-Th)/He geochronology to explore the structural and thermal evolution of the foothills-Higher Himalaya transition in the Burhi Gandaki and Trisuli drainages of central Nepal. This combination of geomorphic and geochronologic approaches is designed to provide several independent measures of late Miocene to recent uplift and exhumation patterns -- independent of available geodetic and microseismic data currently used to constrain crustal architecture - and thus to help inform the next generation of evolutionary models for the Himalayan orogenic wedge.